Interagency Agreement between NSF and ONR

The participant in this agreement will support the Human Computer Interface and Information Management Corrdinating Group and the Software Design and Productivity Coordinating Group in the above activities.